A Large Signal Nonlinear Circuit Model for Compound Semiconductor Field Effect Transistors

During the past decade there has been an increase in the design and complexity of compound semiconductor devices and systems. For these devices and systems to operate effectively, robust device and system designs are needed. Unfortunately in the case of gallium arsenide devices, design engineers use workstation tools that describe the complex conduction paths within devices by highly approximate algorithms that are limited in their predictive abilities. The principle Phase I research objectives are: (1) to utilize the SRA physically based drift and diffusion equation algorithm to develop parameters allowing an equivalent circuit representation of gallium arsenide field effect transistors to be used in nonlinear device circuit analysis for large signals at high frequency. (2) Use the nonlienar circuit differential equations in the design of a power FET, and verify the design using the drift and diffusion equations. (3) Couple the SRA generated nonlinear circuit differential equations to a general circuit algorithm, in this case the Harmonic Balance Method. The innovative feature of SRA's Phase I approach is to obtain the coefficients for the nonlinear circuit representation of a compound semiconductor from the solutions to the nonlinear governing partial differential equations. Success in this program would create a device/circuit design tool useable by a broad range of design engineers that is applicable to GaAs and other modern semiconductor materials. Under the Phase I program the design tool shall be implemented for the problem of designing high power gallium arsenide FETs. Under the Phase II part of the program the drift and diffusion code and the Harmonic Balance Method circuit analysis will be put into a workstation with a user interface that circuit and device designers can use.